AF: Small: Rehabilitating Constants in Sublinear Algorithms

The scale of data produced in the world is growing faster than the
ability to process it. One approach for dealing with this data deluge
involves sublinear algorithms, which are designed to estimate some
feature of data without needing to store, or sometimes even see, the
entire data set. Sublinear algorithms include distribution testing
(e.g., estimating if a lottery is fair or not), streaming algorithms
(e.g., finding the most common URLs on the web), and property testing
(e.g., estimating the maximum degree of a network). For these
problems, computer scientists have carefully studied how the
complexity of the solution grows with the problem parameters---for
example, estimating if a lottery is fair requires a number of draws
that scales with the square root of the number of possible numbers
drawn. But results so far have not been able to analyze the solution
complexity for concrete instances (e.g., for a birthday lottery with
366 possible numbers, how many samples are necessary to verify
fairness?). This project aims to change that, by finding solutions
with not only good asymptotic scaling, but good constant factors.

Developing sublinear algorithms with good constant factors will
require new algorithmic techniques. The sublinear-algorithms
literature is based on several widespread techniques like probability
amplification that are simple, general, and optimal up to constant
factors---and significantly suboptimal in their constant factors. By
replacing these techniques with more fine-grained ones, this project
aims to develop new algorithms with better performance in practice.
This project also aims to empirically measure the worst-case
performance of algorithms, by identifying which input distributions
are provably hardest to solve. By testing different algorithms in
practice, the project will discover and compare the actual impact of
different algorithmic choices.